CMMI 2012 Grantee Conference: Boston, Massachusetts, July 8-12, 2012; Engineering Transformation Through Partnerships

This award provides funding for the Division of Civil, Mechanical and Manufacturing Innovation 2012 Grantees Conference. The conference will be held in Boston, Massachusetts, and the theme will be "Engineering Transformation Through Partnerships." This conference will provide a venue for all Division grantees to meet their program officers and to report on their progress by presenting posters. It will also feature plenary and parallel sessions that help investigators better perform their research.

This conference has evolved into a major event, with over 1,200 attendees. It provides an opportunity for the Division's program officers to meet essentially all of their grantees, and it provides a venue for interaction between grantees. The conference also includes several events, such as a proposal writing workshop for young faculty and parallel session on topics such as ethics, to better prepare faculty for their careers. Student participation is a key feature of the conference, with attendance by over 200 students who also present posters featuring their work.